Effect of Fiber Orientation on Fiber Damage During Sliding Wear of Fiber Composites

The objective of this project is to experimentally and theoretically investigate the effect of fiber orientation on fiber damage during sliding wear. The experimental investigation will consist of preparing graphite fiber composite specimens with specific fiber orientations, friction and wear testing, extracting damaged graphite fibers from the wear debris, and evaluating the wear track and the damaged graphite fibers by scanning electron microscope. Typical sliding directions against fiber orientation will be longitudinal, transverse, and normal directions. Extraction of damaged graphite fibers from the wear debris will be achieved by thermally degrading the matrix material. It is expected that the shape and size of the fiber debris collected from the wear particles will reveal different damage mechanisms for different fiber orientations, e.g., buckling, bending, pulling, or sliding wear of individual fibers. The theoretical investigation will employ a finite element method to determine the deformation of fibers and the stress distribution within the composite subsurface under normal and tangential loadings. The stress distribution in the subsurface and the deformation of fibers obtained from the finite element analysis will indicate the possible fracture point of the fibers during sliding wear. Microscopic examination of the fiber debris will be compared with the results of finite element analysis.